Attentional Mechanisms of Feature Integration

A large variety of evidence suggests that processing of visual objects is done in two separate stages. The visual system first parses the scene into visual features such as color, line orientation, and direction of motion. At this early stage of processing there is no distinction between features that originate from different objects in the scene. The particular visual features of each object in the scene are conjoined at a later stage. The analysis of the visual features at the early stage of processing creates a serious problem for the visual system. Given that there is no distinction at the early stage between features of different objects, how does the visual system correctly conjoin features of one object without confusing them with features of other objects in the scene? What is(are) the mechnism(s) for feature integration? This research follows from the hypothesis that the visual system uses two different mechanisms for feature integration. One mechanism, the coarse location mechanism, is based on the notion that visual features are perceived at the early stage with coarse location information. The coarse location mechanism integrates features with overlapping location information. This mechanism, however, is not useful when objects are located spatially near each other. In these situations, a second mechanism, the attentional binding mechanism must be used. The attentional mechanism works by marking an area in space and conjoining the features present in that area. Separate sets of experiments will examine properties of the two mechanisms. The first set of experiments will explore some of the basic characteristics of the coarse location mechanism and will show its applicability to everyday situations. For example, can the coarse location information detect two targets in parallel? Does it use a simple (linear) activation rule for integrating features? Can it ignore irrelevant features? The second set of experiments will examine several spatial properties of the attentional binding mechanism and will look at possible connections between the operation of this mechanism and some of the Gestalt grouping principles. This research may lead to mechanisms for simulation of human object recognition by an artificial system.